NSF Minority Postdoctoral Research Fellowship for FY 2000

This action funds an NSF Minority Postdoctoral Research Fellowship for 2000.

The research and training plan is in the area of Sensory Systems and is entitled "Habitat Light and the Evolution of Visual-Signal Design". Signal diversity in animals may be explained by selection pressures for particular signals and sensory systems based on optimal transmission and detection efficiency, as described by the sensory drive hypothesis (SDH). The SDH may play an important role in genetic isolation of populations and, in turn, speciation. This research examines six allopatric (i.e. occurring in different locations) populations of the lizard Anolis cristatellus found in two distinct habitat types. Habitat light, visual-system response, and signal design are examined. This study provides a greater understanding of the role of sensory drive in the generation of signal diversity and its potential role in the formation of new species.